Electrons at Interfaces and in Glasses

The objective of this research is to understand the behavior of electrons at interfaces, in glasses, and in other structures where crystallinity is either absent or reduced, and thereby explain structural, vibrational, and electronic properties of many materials. This will be done by extending the Recursion Library, a collection of Fortran programs for solving the equations of electronic motion in non-crystalline materials, to gausssian basis sets, to applications of the local density approximation, and to applications of the GW method for calculating excitation energies of solids. The recursion method will be applied to the theory of small circuits, electronic states near interfaces, surface adhesion in layered compounds, and the effect of dirt on the bandstructure of a crystal. The new idea of a conserved momentum in certain glass structuress will be explored. The understanding of electronic structure and its consequences in non-crystalline materials is an important step in the development of quantum mechanics and in the technological application of these materials.